High Performance Computational Network Expansion Plan

Abstract 576 Huray High Performance Computational Network Expansion Plan South Carolina EPSCoR will establish a High Performance Computational Network Expansion Plan to provide computational tools, training, and programming support to a broad array of junior faculty at several of the State's senior institutions, including Clemson University, the Medical University of South Carolina, the University of South Carolina, South Carolina State University, the College of Charleston, and USC-Aiken. Effective access to the South Carolina Supercomputer Network will be provided to computational researchers, graduate and undergraduate students, and South Carolina's industrial sector. The project will provide research opportunities to junior faculty and will expand the South Carolina Supercomputer Network through the purchase and linking of onsite workstations. In support of this project, the participating institutions will appoint six graduate fellowships in high performance computational science. Systemic and potential long-term impacts include the transfer of new knowledge to non-competitive faculty and the coalescing of the educational agendas of South Carolina's leading institutions of higher education with those of the state's industrial sector.